Computer Graphics and Dynamics Lab

This project will support the creation of an undergraduate computer graphics/dynamics laboratory at Boston University for students in elementary calculus courses. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the stated goal of improving "the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering." This laboratory will expose students to some mathematical topics of current interest in the area of dynamical systems and will add an experimental component to the traditional calculus course.